Experimental Solid State Research

The proposed work intends to clarify several important problems in condensed matter physics. They include the dynamic and static magnetic properties of surface adatoms at fractional through multimonolayer levels; the mechanism(s) responsible for high temperature superconductivity, in particular the nature of the two-dimensional antiferromagnetism of the type evidenced in the copper oxide high Tc superconductors; the search for new high Tc superconductors; and the nature of strong localization in one- and two-dimensional electromagnetic systems. The research will utilize the techniques of electron spin resonance, direct dc magnetization, weak localization, and atomic scanning and force microscopy for application to these problems.